Microlocal Aspects of Geometric Quantization and Mathematical Physics

ABSTRACT

It is proposed to use microlocal techniques (including Fourier integral
operators with complex phase) to study the following topics in global
analysis: (A) The Toda PDE, a large N limit of the Toda lattice, in
the periodic and non-periodic cases. Topics to be researched include
large N estimates relating Toda lattice solutions and solutions to the
Toda PDE, and shock formation. (B) Spectral problems for the
Laplacian, including the semi-classical asymptotics of the scattering
matrix in manifolds with cylindrical ends. (C) Symplectic geometry,
via generalized Szego kernels. Specifically, the asymptotics of
Kodaira-type embeddings and the relationship between symplectic
capacities and geometric quantization will be researched.

The quantum-classical correspondence is a deep feature of Nature,
admitting a variety of mathematical manifestations. In general terms,
these manifestations take the form of relationships between dynamical
systems (systems of ordinary differential equations) and partial
differential equations, in suitable asymptotic regimes (the
semi-classical limit). The proposed research will investigate some
such relationships, in the general areas of completely-integrable
dynamical systems, the geometry of the Laplace operator, and
differential geometry. A particularly novel aspect of the proposed
research is to the Toda PDE, a large N limit of the Toda lattice. The
proposed research will result in a deeper understanding of certain
non-linear partial differential equations, and of the geometry of phase
spaces (symplectic manifolds).